Experimental Verification of The Regenerative Engine

The regenerative engine is a new concept of internal combustion engine in which part of the energy of the exhaust gases is recovered in a porous regenerator to be used in the next cycle. As a result, the thermodynamic cycle in the engine is radically changed. A computational model, including fluid friction as well as thermodynamic variables, has shown indicated efficiencies in excess of 40 percent for wide ranges of fuel/air mixture ratios, speeds, loads, and design parameters. This engine also promises a reduction of pollutant emissions and a higher power density through the elimination of knock. It is proposed to test experimentally this cycle in order to check the appropriateness of the model and the practical potential of the new cycle. Conventional engine tests (load, speed, fuel consumption, and emissions) will be performed over a prototype engine composed of two single-cylinder engines. In this engine, one cylinder acts as a compressor and the other as an expander with a variable phase difference between them. Flow is controlled by a series of poppet valves. Experimental indicated cycles will be obtained for comparison with the predictions of the model and its further improvement. Heat transfer and combustion sub-models will be added as experimental data become available.